BSM-PM: RUI: Molecular Vibrations as Quantum Sensors of New Physics

Atoms and molecules follow the laws of quantum mechanics. Their energies are “quantized” meaning they can only exist in certain states. Some of these states are particularly well-suited to use in timekeeping, quantum information, or tests of physical laws. This award focuses on molecular vibrations – the stretching and compressing of a chemical bond between atoms. The project will use the extremely stable oscillation of these vibrations as the pendulum of a molecular clock. This new type of clock will be sensitive to tiny changes in the basic physical parameters of nature, such as the mass ratio of protons to electrons. Such changes are predicted by models of quantum gravity or dark matter. This work will promote the progress of science in searching for such new physics. It will advance the priority research area of Quantum Information Science by developing molecular vibration as a quantum sensor of time as well as improving techniques for trapping individual atoms and molecules and controlling their quantum states. This research takes place at a primarily undergraduate institution, and undergraduate students will be key contributors to all aspects of the work. The project will advance the career of a postdoctoral scholar. In addition to training the next generation of scientists, this work will develop experimental and technical skills that are valuable in many careers.

This award enables investigation of laser-driven vibrational transitions in molecular ions. The particular transition here – from the ground vibrational state to a vibrationally excited state in the diatomic oxygen molecular cation – has a narrow natural linewidth, high sensitivity to changing fundamental constants, and long-term prospects as an optical molecular clock. The nonpolar nature of the molecule suppresses systematic shifts related to electric fields, such as AC Stark shifts and blackbody radiation. Molecular vibrations hold great promise for next-generation searches for drifts or oscillations in the proton-to-electron mass ratio. This project builds on the PI’s experience with trapped charged particles as well as existing infrastructure for producing, trapping, and cooling quantum-state-selected molecular ions. These ions will be loaded into a trap and sympathetically cooled with co-trapped atomic ions. The trapping enables long probe times, which will be needed to precisely determine the transition frequency and to demonstrate a proof-of-principle search for variation in the proton-to-electron mass ratio. Such a search is a probe of additional dimensions, new scalar fields, and ultralight dark matter.